Design Methodologies and Tools for 1 GHz and Beyond

This research explores systematic design methodologies to handle timing and communication in mixed synchronous - asynchronous designs. Formal and automated techniques for managing the design process multiple, independently synchronized domains on a VLSI chip are being developed. Specific research focuses on: mixed- timing design methodologies and components; specification formalism for mixed- timing interfaces, performance driven synthesis and technology mapping techniques for mixed-timing circuits; hierarchical timing verification techniques that check the validity of assumptions used for synthesis and technology mapping, and techniques to estimate and analyze system performance. The PIs research plan is coupled with an education plan. It provides: an environment to nurture students; open-ended problem solving skills; incorporated research activities for undergraduates; opens research opportunities to underrepresented groups; and develops industrial internships in the graduate research program.